Applied Mathematical Logic

The investigator's research combines a number of diverse areas in
mathematics: logic, set theory, algebra, topology, and analysis,
as well as some automated reasoning techniques from computer science.
In topology, the investigator focuses on properties of scattered spaces,
compact homogeneous spaces, and Bohr topologies. Topology and analysis
are integrated in this research, especially in the area of Bohr topologies,
since the subject involves the standard cardinal functions of general
topology (such as weight, character, etc.), but is studied via the
theory of group representations, which is part of harmonic analysis.
Also, compact homogeneous spaces are often constructed with the aid
of measures on the spaces. Logic and set theory are relevant because
statements about topology and measure theory are frequently independent
of the usual axioms of set theory; when a result is proved independent,
the methods used are those of formal logic. For example, the notion of
the Cantor-Bendixson sequence and scattered spaces is 100 years old,
but there are still questions about the cardinals which can arise
in the sequence of Cantor-Bendixson derivatives; part of the
investigator's research studies how this sequence varies in different
models of set theory. In algebra, the investigator works on algebraic
systems such as quasigroups and loops. Automated reasoning tools
are very useful here. These algebraic systems are described by
fairly simple axioms, and a computer search can often reveal
interesting new consequences of these axioms. However, the
investigator combines the computer use with classical arguments
involving combinatorics and group theory.

The investigator's research studies a number of topics in pure
mathematics which arose naturally in an attempt to generalize
properties of the physical universe. For example, topology arises
naturally in an attempt to generalize the geometry of physical space.
Measure theory is a natural extension of the notion of probability.
The research also studies algebraic properties of loops, which naturally
generalize the concept of groups, which arise in the study of symmetry.
There is also a computational component to this research, especially
involving loops. Frequently in this area, one wants to know
whether one equation implies another. A proof of such an implication
involves symbolic manipulation which can be performed by a computer program.
In recent years, the hardware and software have become powerful enough
to discover new implications and to solve problems which had been
intractable without computer assistance. The investigator's
research here is of interest both for the mathematics itself,
and for the advancement of the computer tools used.